Criteria for Selecting Base Isolation

This research project is directed at developing a strategy or methodology to examine and evaluate the issues which permit an informed decision about whether the structure under consideration is a candidate for base isolation, what type of base isolation is most suitable, and what technical problems should be expected so that appropriate design features may be included. The research is divided into three phases; the first phase consists of assembling data on various current base-isolation schemes and developing methodologies for the selection of a design system. Subsequent phase will focus on technology assessment and feasibility evaluation, and application examples.